CAREER: Barcoded Hydrogels: A Multifunctional Platform for Biomaterials Discovery and Development

Non-technical description:
Hydrogels are squishy, sponge-like materials with significant potential in medicine and
environmental science. Hydrogels are used for wound healing, drug delivery in the body, and even
to clean up pollution. Made from long chains of molecules called polymers, hydrogels hold large
amounts of water and change shape or function depending on their design. However, designing
the most effective hydrogels for specific applications is a complex challenge. Traditional testing
methods are slow and expensive, making it difficult for researchers to quickly and efficiently
identify the best hydrogels. This prevents effective hydrogel materials from being developed for
many critical applications.
This proposal aims to leverage two innovative techniques, barcoding and pooled
screening, to accelerate the testing and development of hydrogels. The principal investigator
proposes to barcode individual hydrogel materials with unique identifiers, like product barcodes
in a store. These barcodes are chemical markers that can be used to track and distinguish
hydrogels. Instead of testing each hydrogel separately, barcoded hydrogels can be grouped, or
pooled, together and exposed to the same test conditions, saving time and resources and
lowering experimental variability. The barcodes make it possible to track the performance of each
hydrogel individually. This proposed method will provide a way to test up to hundreds or thousands
of hydrogel designs in parallel, enabling rapid evaluation and comparison of hydrogel
performance. This approach aims to speed up the discovery of improved, functional hydrogels for
medical and environmental applications.
This project will also give middle school students the opportunity to learn about hydrogels
through hands-on demos. The principal investigator also plans to introduce biomaterials into core
college courses and create a new elective class to introduce students to exciting careers in the
field of biomaterials.

Technical description:
Hydrogels are versatile biomaterials made of hydrated, cross-linked polymer networks
used in tissue engineering, drug delivery, and environmental applications. However, their complex
design and vast parameter space make it challenging to identify generalizable design principles
through traditional, low-throughput methods, slowing and preventing the development of
functional hydrogel materials. High-throughput techniques like barcoding and pooled screening
can accelerate the discovery of structure-function relationships. While these types of approaches
have not yet been applied to hydrogel-based biomaterials, there is significant potential to advance
this field to the same extent. This CAREER proposal aims to leverage a molecular barcoding
platform pioneered by the principal investigator for systematic evaluation of hydrogel parameters
in a pooled, combinatorial manner. This approach will enable the assessment of material
properties such as degradation and cargo release and help establish generalizable design rules
for diverse hydrogel systems. By utilizing cost-effective, commercially available barcoding
reagents and mass spectrometry-based detection methods, the proposed approach offers a
standardized, high-throughput tool accessible to the hydrogel community. Additionally, it will
streamline data harmonization and automate workflows. The research focuses on four main
areas: (1) examining how polymer and linker designs affect hydrogel degradation, (2) studying
the impact of biomolecule size and charge on release from hydrogel matrices, (3) developing and
characterizing hydrogel sorbents, and (4) automating screening workflows. This proposal also
aims to promote diversity in STEM and expose students to biomaterials-related careers,
particularly in the local medical device industry through a multi-tiered educational program that
includes the integration of biomaterials course modules into core undergraduate courses,
development of an elective biomaterials course, and a STEM outreach program for middle school
girls.